Collaborative Research: Fundamentals and Applications of Thiol-Ene Photopolymerizations

This is a tie project between the Industry/University Cooperative Research Center (I/UCRC) for Coatings at the University of Southern Mississippi and the I/UCRC for Photopolymerization at the University of Colorado. The objectives of the research are to synthesize a series of novel thiol-ene monomers and study their photopolymerization behavior under a variety of conditions. The mechanisms and kinetics of photopolymerization will be investigated. The fundamental knowledge about the structure-property relations will be used to develop stable photopolymers as industrial coatings.